Purchase of a 9.4 Tesla Fourier Transform Mass Spectrometer

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program will enable the Department of Chemistry at The University of Arkansas to acquire a 9.4 Tesla Fourier Transform Ion Cyclotron Resonance Mass Spectrometer equipped with both electrospray and matrix assisted laser desorption ionization. This equipment will enhance research in a number of areas, including a) investigations of the structure and dynamics of proteins; b) rapid and accurate characterization of bacteria; and c) analysis of synthesis polymers.

Mass spectrometry is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic, and organometallic molecules. The acquisition of this capability in mass spectrometry will have a significant impact in the areas of polymer chemistry and biochemistry.